Genetics of Yeast Virus Double-stranded RNA

The proposed research will define the important cis-acting viral sequences and the trans-acting host (yeast) genes necessary and sufficient for establishing an infection and for in vivo replication of the L-A and M1 double-stranded (ds) RNA viruses that are components of the Killer virus system of yeast. The term "replication" here means dsRNA viral replication, with emphasis of RNA packaging and RNA genome replication. The specific aims for the research proposed are as follows: 1) Develop and efficient procedure for the transformation of yeast with RNA. 2) Develop replicon systems for analyzing the molecular details of infection and replication. The replicons will be single stranded (ss) RNA transcribed in vivo from DNA clones and introduced into yeast by transformation. The replicon RNAs are subgenomic RNAs which will require viral helper functions in trans to replicate. 3) Compare properties of successful replicons with the properties of natural L-A and M1 viruses; i.e. dsRNA molecules per virus particle;effect pm L-A virus number in wild-type yeast strains and strains carrying superkiller (ski) mutations; compatibility with M1; and host genes required for replication. 4) Identify the 5' and 3' sequence requirements, and sequence context effect for infection, replication and translation by manipulating replicon sequences through in vivo mutagenesis. 5) Identify host genes required for replicon replication by isolating yeast mutants that interfere with replicon replication, and suppressors of those mutants.